Pan American Advanced Studies Institute on Partial Differential Equations, Inverse Problems and Nonlinear Analysis

0220580
Uhlmann

The Pan America Advanced Studies Institute (PASI) award on inverse problems, organized by Gunther Uhlmann of the University of Washington in collaboration with Dr. Raul Manasevich of the Centro de Modelamiento Matematico (CMM) in Santiago, Chile, will take place at the CMM from July 22 to August 2, 2002. The event will bring together leading experts in the areas of partial differential equations, inverse problems and non-linear analysis. The proposed activities will consist of intensive mini-courses followed by complementary lectures and further discussion.

The interaction between partial differential equations, inverse problems and non-linear analysis has produced remarkable developments in the last couple of decades. These developments have implications for different fields, including geophysics, medical imaging, and the non-destructive evaluations of materials. One of the main objectives of this PASI is to bring many of these developments to advanced graduate students, postdocs and other scientists in the Americas interested in these fields and their applications. It is expected that the PASI will bring about increased collaboration between United States researchers and researchers in the rest of the hemisphere.